SCI: Terascale Computing System

This proposal number referenced 0442226 - which refers to the PSC prototype super computer built by Cray Research and referred to as Red Storm. This proposal number will serve as an "Umbrella" number for all Cooperative Support Agreements generated under it. This is for the purpose of tracking all actions for the coming five years that are generated under SCI 0456541.